A Computer Based Neurophysiology Laboratory

9452549 McGinnis A computer-based neurophysiology laboratory will complement an existing neurobiology course within the Biology Department. The laboratory component will foster increased exploration, critical analysis and hands-on experience in using state-of-the art instrumentation by students enrolled in the course. Equipment will be purchased to build five (5) electrophysiological workstations including: electrophysiological instrumentation, computers, and optical equipment. Emphasis will be placed on the use of instrumentation, as well as graphical and statistical analysis of data using computers and computer software. As a result of this experience, students will learn concepts of neurobiology through inquiry and experimentation. The students will also become familiar with a computer and its application as a tool to gather and analyze data, skills that are increasingly becoming a requisite for both technical and non-technical careers. Approximately 40 students annually will be able to increase their skills through enrollment in the proposed computer-based neurophysiolocal laboratory.